Evaluation of the Use of the Wavelet Transform for Analysis of Mechanical Transients

A standard approach to analyzing periodic signal associated with the response of mechanical and electromechanical systems is the Fourier Transform. However, there is no conventional method for detection and analysis of transients of such systems. This project proposes the use of the wavelet transform as a solution to this problem. It has recently been used for this purpose in non mechanical fields. Phase I research will focus on fundamental issues related to repeatability of wavelet coefficients in the presence of arbitrary time shifts, and the ability to individually identify transients.